Conditional Immortalization of Olfactory Neuron Precursors from Transgenic Mice

Neurogenesis, the proliferation and differentiation of cells that give rise to neurons, plays a fundamental role in shaping the developing nervous system. Currently, little is known about molecules that regulate neurogenesis in mammals and other higher vertebrates. To facilitate the study of vertebrate neurogenesis at the molecular level, an in vitro system has been developed involving primary culture of a relatively simple germinative neuroepithelium, the olfactory epithelium (OE) of the mouse embryo. Immortalized cell lines, which have some properties of OE neuronal precursors, have also been generated, but failure of these cell lines to differentiate fully precludes their usefulness for many studies. The objective of the experiments performed during this Research Planning Grant is to generate conditionally-immortalized cell lines capable of undergoing full differentiation into olfactory receptor neurons. A strategy specifically designed to select for differentiating cell lines, involving use of an existing strain of transgenic mice, will be used in these preliminary experiments. Future studies to be conducted with cell lines generated during the planning period would be directed towards identifying gene products characteristic of the neuronal precursor phenotype. Specifically, a molecular genetic approach ("promoter trapping") would be used to identify genes that are expressed in proliferating neuronal precursor cells and are turned off upon terminal neuronal differentiation. Genes identified using this approach would then be analyzed with respect to pattern and timing of expressing in vivo during normal development, to determine whether they are expressed in all germinative neuroepithelia; such widely-expressed genes are potentially of general importance in the regulation of neurogenesis.